Contact Geometry and Einstein Manifolds

Abstract

Award: DMS-9970904
Principal Investigator: Charles P. Boyer and Krzysztof Galicki

Professors Boyer and Galicki propose to investigate several
projects in geometry and topology. The objective of all the
projects is to investigate fundamental questions in Riemannian
Geometry with the two main focal points, Contact Geometry and
Einstein Metrics. The questions and problems proposed here are
based on the principal investigators' work which exploited a
fundamental relationship between contact geometry of
Sasakian-Einstein spaces and two particular kinds of Kaehler
geometry. These are the Q-factorial Fano varieties
(Kaehler-Einstein metrics with positive scalar curvature) and the
Calabi-Yau manifolds (Kaehler Ricci-flat metrics). Our recent
work has led to a significant progress in studying many classical
problems as well as resulted in the development of completely new
techniques. Most notably, we were able to construct compact
locally irreducible positive scalar curvature Einstein spaces
with arbitrary second Betti number in any odd dimension greater
than 5. We now are at the point where several classification
problems and conjectures described in this proposal appear to be
within our reach. Furthermore, the type of Einstein geometry that
we are studying has recently become of interest in Theoretical
Physics in the context of superconformal field theory and string
theory, and gives our work an interdisciplinary flavor.

Mathematics is the foundation upon which our modern technology is
built, and much of its understanding and development must preceed
technological progress. Nevertheless, our research into a
particular type of geometry is closely linked to some important
problems in modern Theoretical Physics and should provide an
important mathematical basis for their understanding.